Computer Laboratory for Mathematics Education Instruction

This project is intended to improve the mathematics instruction by making effective use of state-of-the-art computers and associated technological equipment. Innovations in the teaching of mathematical concepts have been made possible by advances in computer hardware and software. We need to ensure that our teachers can use these technological advances to their fullest potential. This project will establish a laboratory to provide practical classroom activities and demonstrations for prospective elementary and secondary teachers.We will replace our outdated lab of Apple II computers with a network of Macintosh workstations, a file server, a CD-ROM player, a video disk player and a scanner. This local network will be connected to our existing campus network and through it to the internet, giving our students access to a growing network connecting elementary and secondary post-secondary educators.For our education students in mathematics to be trained to teach at a world-class level, they need experiences on state-of-the-art equipment. This equipment will enable our students to learn problem solving strategies, programming, and applications on equipment that will be the latest currently available. Thus, our students will be able to contribute their expertise to the community-at-large upon graduation.